Enhancing Student Motivation in the First-Year Computing Curriculum

Computer Science (31)

This project is developing laboratory modules for the two-semester introductory computer science courses using robotics. The goals are to increase student interest in and motivation to study computer science and to improve students' understanding of the fundamental concepts of computer science typically covered in the first-year course sequence. Emphasis is being placed on laboratory modules that are scalable, cost-effective, and adaptable.

The first semester laboratories allow students to interact with the robots in a virtual world created within the Alice programming environment. The second semester laboratories have the students interacting with physical robots in a laboratory setting. Both classroom instruction and laboratory experiences involve significant collaboration among students. The project has an assessment component that examines the extent to which the project deliverables are meeting the stated goals.